A Predictive Model for Biogenic Hydrocarbon Aerosol Formation Using a Gas Phase Kinetic-Aerosol Partitioning Approach

This project will investigate the chemical kinetics mechanisms involved in gas phase biogenic reactions. The goal of the project is to develop a predictive model for hydrocarbon aerosol formation as a result of biological gas phase emissions. Currently, biogenic aerosol formation is represented in modeling efforts based on empirically determined parameters. Biogenic aerosols can contribute both to visibility loss on a local scale and to climate forcing effects on a regional scale. The project will involve a number of outdoor chamber experiments to measure terpene gas and particle phase reaction products in the presence of light and nitrogen oxides over a specified temperature range to develop a sequence of kinetic expressions to model aerosol formation.